Student Travel Support for ACM HPDC 2013

The project supports 10 students to attend the 22nd ACM International Symposium on High Performance Parallel
and Distributed Computing (HPDC-2013) to be held in New York, NY, June 17-21, 2013. HPDC 2013 comprises the main conference as well as 8 affiliated workshops, and is the premier forum for presenting the latest research findings on the design and use of parallel and distributed systems for high end computing, collaboration, data analysis, and other innovative applications. Student attendance at the conference will greatly benefit the students by exposing them to a variety of issues in high end computing.